Equipment Upgrade for the Electron Microprobe Facility at Oregon State University

9303785 Nielsen This award provides 28 percent of the funding necessary to upgrade the controlling computer system on the electron microprobe in the College of Oceanography at Oregon State University. The institution is committed to providing the remaining funds needed. The electron microprobe laboratory at Oregon State University provides analytical capabilities (quantitative elemental micro- analyses with a spatial resolution of a micrometer) that is required for the research of a large number of faculty and students in the College of Oceanography and in the Department of Geosciences at Oregon State. ***